Dissertation Research: Genetic Variability and Interdemic Selection in Small Populations

9321689 Goodnight Inbreeding depression is potentially one of the most serious genetic consequences of reduced population size. This research is an empirical study on selection for reduced inbreeding depression among a subdivided population, using Tribolium castaneum as the model system. It will involve a comparison of two migration schemes, random and differential, among a set of fifteen inbred lineages derived from the same outbred stock population. In the differential migration scheme, migrants will be sent from lineages suffering from less inbreeding depression to lineages suffering from more inbreeding depression. In the random migration scheme, the rate of migration will be the same but migrants will be sent at random with respect to levels of inbreeding depression. A significant response to selection will be evident by a significant decrease in the level of inbreeding depression in the differential migration scheme, relative to the random migration scheme.%%% The significance of the research lies in its insight into the quantitative aspects of gene flow within and between small, subdivided populations, an issue of considerable significance to basic population and conservation biology.***